Nuclear Theory

This proposal involves the study of equilibrium and non- equilibrium properties of nuclear matter, with applications to heavy-ion reactions, the effective nucleon-nucleon interaction in nuclear matter, and the nuclear equation of state. The research will employ the quantum mechanical Green function formalism of Kadanoff and Baym. Other applications include a study of the collision term in transport equations from a quantum mechanical viewpoint. ***